Enhancing the Teaching of Science in Mathematics and Mathematics in Science by Secondary School Teachers

This three year project, sponsored by Bridgewater State College, will provide a three week summer program each year for three years for teachers of science and mathematics. Teachers of mathematics will be taught science and teachers of science will be taught mathematics so that science and mathematics will be integrated in the science and mathematics courses. Sixty teachers from the state of Massachusetts will be selected each year, 30 in mathematics and 30 in science. Teachers from grades 10-12 will participate the first year, teachers in grades 7-9 the second year and teachers in grades 9-11 in the third year. Teachers will be selected in teams and are expected to carryout inservice activities upon return to the schools. There will be nine follow-up sessions which will support and assess the participants' activities in the classroom and their efforts in leadership activities. Matching funds from the college and the schools amount to more than 26% of the NSF grant.